Nonlinear Geometry of Banach Spaces and Metric Spaces

The project proposes to study which Banach spaces have the class of their
linear subspaces and/or linear quotients closed under uniform or Lipschitz
maps. It also proposes to study the coarse geometry of these Banach spaces
and their subsets. Coarse maps were introduced by Gromov to study the
geometry of groups in the large scale. The particular subsets that the project
will focus on will be discrete metric spaces with bounded geometry, including
expanders. As the project goes along these lines, the geometry of general
metric spaces will be studied as well. The general aim is to extend the
techniques from Banach space theory into the study of metric spaces. One
of the goals will be to understand metric uniform convexity more fully.

Nonlinear Banach Space Theory is a branch of Banach Space Theory that
studies the geometry of Banach spaces and their subsets under nonlinear
maps. Banach Space Theory is a mature branch of Functional Analysis with
well-developed techniques. The nonlinear theory rejuvenates it by bringing
it into the service of other areas of Mathematics such as Algebraic Geometry,
Geometric Group Theory and Theoretical Computer Science. It is one of the
tools used in the study of the Novikov conjecture, a conjecture that spans
several areas of Mathematics already, by studying the metric geometry of
one object intimately tied to the manifold: its fundamental group. It also
contributes to Computer Science by helping find a simpler geometry for the
many metrics that appear in practice, like in Data Mining for example. In
the meantime, it deepens the understanding of the primary objects of Banach
Space Theory itself. The research proposed in the present project will touch
all of these aspects of Nonlinear Banach Space Theory.